Root Systems and Special Functions

The proposal is in the area of the theory of hypergeometric
functions associated to root systems, and their q-deformations.
A number of key results have been obtained by the investigator
in the course of previous NSF supported research. These results
have led to the resolution of various conjectures of Dunkl,
Macdonald, Koornwinder and others. It is proposed to examine
some of the outstanding problems in this area, which have to
do with certain positivity conjectures of Macdonald, Stanley, and the
proposer.

The research described above should lead to a better understanding
of several different areas of mathematics including algebra,
representation theory, combinatorics, analysis, and multivariate
statistics.